POWRE: Optically Reconfigurable Antenna Synapses

9720623 R. A. Mullen University of Washington Optically Reconfigurable Antenna Synapses Dr. Mullen will evaluate the feasibility of employing polymers in lieu of semiconductors in photoconductive microwave switches. If successful, this work promises to increase the functionality of microwave antenna apertures. This award will enhance the rf photonic program being established at the Univ. of Washington by the PI. This research activity will be highly leveraged by the experience, knowledge, practical insights and rf photonic diagnostic facilities developed during the PI's 12 years of industrial experience. It will significantly further the PI's career goals by nurturing nascent cross-disciplinary collaborations and by expending opportunities to publish scholarly articles and technical proposals necessary to attain an influential high-visibility position within the university tenure system.